Mathematical Sciences: NSF Young Investigator

This research, supported by a National Science Foundation Young Investigator award, will continue the development of a non- linear analogue of the theory of type and cotype by studying Markov chains in metric spaces. The research will also study the 'reverse' geometric inequalities for solid bodies using methods from harmonic analysis and probability theory. The National Science Foundation Young Investigator award recognizes outstanding young faculty. This award recognizes the recipient's strong potential for continued professional growth as a research mathematician and for significant development as a teacher and academic leader.